NUE: In Situ Real-Time Atomic Scale Nanomaterials Synthesis, Characterization and Modeling for Undergraduate Education

This Nanotechnology in Undergraduate Education (NUE) award to Arizona State University supports Dr. Ray W. Carpenter, Center for Solid State Science, along with colleagues Prof. Marilyn Carlson (applied mathematics and Science, Technology, Engineering and Mathematics (STEM) teaching methods), Prof. Jeff Drucker (Physics), Prof. Stephan Goodnick (Electrical Engineering), Prof. Vincent Pizziconi (Bioengineering), Dr. Andrew Chizmeshya (Physics), Dr. Michael McKelvy (Chemistry), Prof. B. L. Ramakrishna (Chemistry and Plant Biology), and Dr. Renu Sharma (Chemistry)to teach undergraduates, at three levels, the abstract concepts and properties dependence on length scales of nanoscience and engineering by leveraging existing cutting edge nanoscience and engineering research projects to produce teaching modules for undergraduate classes and opportunities for senior thesis projects. The levels of students who will be targeted in this program are: first year honors students, second year students who have completed calculus, and advanced undergraduates participating in senior projects.

The proposal for this award was received in response to the Nanoscale Science and Engineering Education announcement, NSF 03-44, category NUE and was jointly funded by the Division of Engineering Education and Centers (EEC) in the Directorate for Engineering (ENG), the Division of Materials Research (DMR) and the Division of Mathematical Sciences (DMS) both in the Directorate for Mathematical and Physical Sciences (MPS).